Mathematical Sciences: Applications of Nonstandard Analysis to Measure Theory, Potential Theory & Related Topics

Loeb will continue his work in applying nonstandard models to measure theory, potential theory, and stochastic processes. This approach uses measure spaces defined on nonstandard point sets. These spaces make finite combinatorial methods available in research on infinite probability spaces. Loeb will combine this measure theory with the theory of nonstandard hulls. He also will continue his work on representing measures and ideal boundaries in potential theory. This research project is in the area of nonstandard analysis. This subject arises from the attempt to develop the standard topics of analysis, including integration and differentiation, based on a nonstandard model for the real numbers. In the nonstandard model, one has the notion of "infinitely small" numbers which formalize the intuitive notions behind the concept of limit. This formal construct often leads to greater combinatorial efficiency.